Spontaneous Assembly of Phospholipid Monolayers (Chemistry)

This project in Organic Chemmistry will significantly contribute to our understanding of the relationship that exists between the chemical composition and structure of a cell and the function of cell surfaces. Insights into the molecular basis of cell-cell recognition using will be gained through use of supported planar lipid films (SPLF's) as cell surface probes. This research focuses on the preparation of a new class of supported planar lipid films (SPLF's), based on the spontaneous assembly of sulfur-bearing phospholipids on gold. Resulting surfaces are intended to provide an opportunity for studying surface structure-bioactivity relationships that would be difficult or impossible to examine using conventional SPLF's. Immediate chemical objectives of this program include: (1) defining the compactness, uniformity and orientation of a series of thiol- bearing phospholipid monolayers on planar gold surfaces, (2) exploring the feasibility of polymerizing adsorbed thiol- and disulfide-based phospholipids on gold, (3) preparing polymeric phospholipid monolayers on gold from preformed lipid polymers and (4) defining the stability of each of the above phospholipid monolayers with regard to lateral migration, and displacement by thiol-containing agents and organic solvents.